Nuclear Magnetic Resonance (NMR) Spectrometer for Science Students

This project will provide undergraduate students at Quinnipiac College opportunities to use NMR spectrometry in a number of chemistry courses and in research projects. A 60-MHz NMR spectrometer with lock/decoupler and variable temperature accessories will be used by students in organic, analytical, and physical chemistry laboratories for a variety of applications, such as elucidating molecular structure, analyzing mixtures, and investigating chemical kinetics. The instrumentation will provide experimental capabilities not previously available, and will strengthen the chemistry education of students in a number of science programs.